Workshop: International Collaboration in Ecology and Evolution of Infectious Diseases, 12 to 14 June 2020, Montpellier

This workshop aims to allow leading and upcoming US researchers in EEID research to communicate and synthesize current knowledge of epidemiology, ecology and evolution of infectious diseases in an international arena. By identifying and assessing major gaps in data, information and knowledge in the EEID, this workshop is going to contribute to the global community's effort and advance our ability and skills in predicting and mapping hot-spots, hot-moments, emergence, spread, and persistence of infectious diseases in the near future.
Broader Impacts mainly center around the long-term development of research priority areas and mechanisms for joint research and education activities in EEID between the US and other international stakeholders.